Thin Layer Flow: Experiments, Modeling, and Analysis

Shearer
DMS-0604047

Recent results suggest that there are strong connections
between the science and mathematics of thin liquid films and the
flow of thin layers of granular materials. The investigators
explores these connections through modeling, analysis, numerical
simulation and experiments. They study multidimensional
nonlinear systems of partial differential equations of avalanche
models, and the connection to experiments, to gain new insights
into fundamental aspects of granular and avalanche mechanics. In
related studies, the investigators formulate and analyze systems
of partial differential equations for thin liquid films driven by
surfactants or controlled by temperature. These equations give
rise to mathematical theory addressing new wave structures
observed in experiments and simulations.

The investigators explore strong connections between the
science and mathematics of thin liquid films and the flow of thin
layers of granular materials. Thin films are important in
medical applications such as surfactant replacement therapy, and
in microscopic coating flows that arise in industry and
manufacturing. Granular materials occur over a large range of
length scales, from pharmaceuticals and agricultural grains to
rocks and gravel in landslides. The results of this project
further the understanding of issues of both specialized
scientific interest and of broad significance to society, such as
the identification of mechanisms of wave propagation and patterns
in surfactant transport in human lungs, and the separation by
size of rocks and other particles in avalanches. This project
incorporates training of mathematics and physics graduate and
undergraduate students in mathematics, simulation, and
experimental physics in a multidisciplinary research program.
The participation of under-represented groups builds on recent
successes. Results from this project are disseminated through
journal publications, special sessions and lectures at
international conferences, articles in popular science
publications, and through a project web page.